Acquisition of a 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Nebraska in Lincoln will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) novel ligands and complexes; b) polar hydrophobicity; c) asymmetric synthesis of alpha-vinyl amino acids; d) metal-catalyzed cyclizations; e) preparation and study of very high-spin organic polyradicals; f) mechanistic and synthetic studies on highly reactive metals; and g) characterization of bio-lanthanide contrast agents and polyproplyene microscruture.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.